Packaging and Distribution of Electronic CAD Software

Three CAD design tools, produced in research projects at the University of Washington, are being developed and enhanced so as to bring them into a state for distribution to general users. These tools are: (1) MacTester, an interactive testing and debugging environment built around the Mackintosh computer; (2) WireC, a mixed graphical and procedural language for describing hardware systems; and (3) Gemini, a VLSI layout verification program that compares the circuit specification with the circuit layout. This grant is made under the Software Capitalization Program.